A Study of Microphysical Processes Associated with the Atmospheric Removal of Moisture and Trace Chemicals by Precipitating Clouds

In regions of copious precipitation, the wet deposition is the primary mechanism in removing trace gas constituents and aerosol particles from the atmosphere. Most of the world's precipitation falls to the ground as rain, although the clouds themselves frequently have temperatures below freezing. The ice crystals play an important role in the cloud development; however, their role in scavenging is not well known. Under this research project, Professor Lamb will conduct laboratory experiments on the adsorption of gas on the surface of ice crystals, the entrapment of gases in rime ice, and the inhibition of secondary ice splinter production by ammonium. The results should give us a better understanding of the interaction between ice crystals and chemical species in clouds, and thereby improve the modeling of scavenging in cloud models.